CRB: Diversity Theory and its Application

The purpose of this research is to develop a new and powerful general methodology for posing and answering basic questions about optimal policies concerning the preservation of biological diversity. The theory will be broad enough to integrate a wide range of related subjects into a coherent whole, yet operational enough to be useful for addressing practical empirical questions. The theory is centered on the diversity function, a basic dynamic programming equation that measures the diversity of a set of n objects or species as a function of n(n-1)/2 pair wise variables. This function can be interpreted as determining the possible genetic distance or dissimilarity, or the probability of species survival, depending on the context and intended application. Theoretical applications will include the use of cost-benefit analysis in analyzing conservation issues, classification theory, maximum likelihood estimation of evolutionary trees, entropy measures of diversity for ecological settings, the calculation of diversity maximizing policies, and relations with portfolio diversification theory. Practical computer packages will be prepared and applied to a series of actual conservation problems. For example, the methodology will be applied to analyzing issues concerned with the preservation of the 15 exiting species of cranes. With the growing world-wide threat to a variety of plant and animal species and their habitats, this research is particularly timely and important.